The Body In Balance - Developing Integrative Life Science Exhibits

9627306 Combs The California Museum of Science and Industry (CMSI) will develop a new exhibit "Body in Balance: Developing Integrative Life Science Exhibits." This will be a 3000 sq. ft. component in the new 17,500 sq. ft. World of Life Exhibit Hall when the CMSI opens its new facility in 1997 and becomes the California Science Center. The World of Life is organized around several key science concepts which emphasize the commonalties among living things and their life processes. One of the major ideas to be communicated in this area is homeostasis as it applies to human beings. Homeostasis has been chosen because it is the unifying theme of system physiology. The exhibit will include seventeen exhibits (with a total of sixty- seven interactive elements) as well as a "The Body in Balance" theater presentations and bilingual (English/Spanish) exhibition books. This integrative view of body functions is consistent with recommendations from Benchmarks for Science Literacy and the Science Framework for California Public Schools Grades K-12. A broad menu of complementary formal education materials will be developed.